Magmatic and Tectonic Segmentation of the Mid-Atlantic Ridge30 Degrees to 34 Degrees North, A U.S. - Soviet Cooperative Study

The P.I. proposes to continue a U.S.-Russian collaborative project (started in 1989) to study geochemical, tectonic, and structural segmentations along the MAR between Hayes and Atlantis Transforms. The Russian vessel Boris Petrov will be used for overall geophysical and bathymetric surveys and ALVIN will be used to sample ridge segments at shorter wavelength intrasegement scale. The goal is to evaluate the petrogenetic processes (mantle source variations, depth of melting, crystal fractionation, magma mixing etc.) that are responsible for the observed geochemical and tectonic variations at all scales of ridge segmentation.